Substorm Intensity and Pre-onset Near-Earth Tail Configurations

The investigators will study near-Earth substorm processes by statistically investigating the pre-onset magnetic configuration as a function of substorm intensity. A substorm is the most dynamic magnetospheric phenomenon, and understanding its energetics is one of the outstanding questions in magnetospheric physics. This study will make use of correlated ground magnetometer data and satellite measurements. The substorm intensity will be measured by the amplitude of magnetic perturbations in mid-latitude ground magnetometers. The stretching of the magnetotail before substorm onsets will be evaluated by comparing observations with magnetic field models. The project will statistically examine the pre-onset tail magnetic configuration and its relationship to the intensity of the subsequent substorm. By examining the time delay of a local onset of dipolarization, the investigators will examine the spatial development of tail current disruption and its dependence on substorm intensity. The project will also provide useful information about the prediction capability of substorm intensity from near-Earth magnetic field observations.